Regulation of Sympathetic Ganglion Development in Vitro

Dr. Greif will investigate factors which help regulate the development of the sympathetic nervous system, using the rat superior cervical ganglion (SCG) as a model system. The principal investigator will grow SCGs in a cell culture system, permitting a detailed analysis of how interactions between cells across synaptic junctions can alter the biochemical development of neurons. Dr. Greif will study how the levels of two proteins associated with synaptic vesicles, which package neurotransmitters, are changed when cells are depolarized electrically or when cells are grown in the presence of target tissue. Once the patterns of response are determined, she will examine how such factors can signal a cell to alter its production of a protein. She will focus on chemical signals found in cells known as "second messengers", which are important in regulating many cellular functions. SCGs will be treated with agents which directly change the level of second messengers. Dr. Greif will then study how well such treatments can mimic the effects of electrical depolarization or other factors. These studies will help us understand how cell-cell interactions can direct the normal development of the nervous system, and may provide important insights into factors responsible for disorders of neural development.